Adaptive Multicast Transport of Realtime Video Over ATM Networks

While existing research shows that reactive congestion control mechanisms are capable of providing high video quality and channel utilization for point-to-point real-time video, there has been relatively little study of the reactive congestion control of point-to-multipoint video, especially in ATM networks. Problems complicating the provision of multicast, feedback-based, real-time video service include (1) implosion of feedback returning to the source as the number of multicast destinations increases, and (2) variance in the amount of available bandwidth on different branches in the multipoint connection. The proposed research addresses and solves the two problems mentioned above by introducing and investigating a new service for real-time multicast video. Multipoint feedback mechanisms are used to adaptively control the transmission rates of each layer of a multi-layered video stream. The proposed service relies on adaptive, multi-layered coding at the video source and closed-loop feedback from the network in order to control the high and low priority video generation rates of the video encoder. It also supports a minimum bandwidth guarantee and the best effort support of video traffic exceeding the minimum rate. To study these mechanisms, mathematical analysis, simulations, and empirical experiments using the ATM testbed network available to the P.I. are employed.